The Development and Evolution of Complex Leaves

0092599
Sinha

Leaves of higher plants are the primary photosynthetic structures and
account for energy exchanges on a global scale and are responsible
for plant survival. While two types of leaves, simple and complex,
can arise from any given shoot apex, the developmental and
evolutionary basis of these divergent leaf morphologies is not known.
The phylogenetic relationships in higher plants suggest that complex
leaves arose multiple independent times during the evolution of land
plants. Do simple and complex leaves differ at the level of some
basic cascade of processes or are new genes and regulatory networks
involved in generating each independent event of leaf complexity?
The role of well-defined genes like the KNOTTED-Like HOMEOBOX Class 1
genes (KNOX1), LFY. PHAN in the generation of leaf complexity needs
to be defined. Further, as yet unknown loci that regulate the
process also need to be identified. The proposed research will
utilize gene expression analyses in unrelated families with complex
leaves, differential gene expression analyses in clonal individuals
exhibiting contrasting leaf forms, and the cloning of factors that
regulate leaf complexity in related species. The goal of this
research is to identify the genes that regulate leaf shape and form,
and to help us understand how leaf form is developed to uniquely suit
the photosynthetic function that leaves perform.